Operator Algebras and Applications

The Purpose of the project is to support research in operator algebras and
related fields. Operator algebras provide models and tools for the study
of noncommutative, or quantized systems and objects. A large part of the
subject is the study of von Neumann algebras (introduced by John von
Neumann about seventy years ago). These are the noncommutative measure
spaces. The research objective of the project is to further develop the
theory of quantum (or "free") probability and statistics in the context of
von Neumann algebras and find applications in mathematics and beyond.

Probabilistic and statistical methods are widely used in many areas of
sciences and in our daily lives. For many complicated systems such as
financial markets or networks, classical theories are not quite
effective in explaining how the systems work and predicting the future.
Quantum probability and statistics provide tools in dealing with large
systems with more interactive or intertwined variables. Progresses in the
study of quantum probability and statistics will enhance our understanding
of the laws in nature and the quality of our living.